NUE: Integration of Nanotechnology Engineering Education into 'Introduction to Materials Science for Engineers (ENGR-1600)'

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled NUE: Integration of Nanotechnology Engineering Education into "Introduction to Materials Science for Engineering (ENGR-1600)", at Rensselaer Polytechnic Institute (RPI) under the direction of Dr. Daniel Lewis, will develop and implement a new set of hands-on, discovery based, laboratory demonstrations and teaching modules for introducing undergraduates to the science, engineering, and societal aspects of nanotechnology through the core engineering course "Introduction to Materials Science for Engineering (ENGR-1600)". This work will provide a model for future institutionalization of nanotechnology throughout the undergraduate curriculum by developing the basic concepts needed in upper level courses.